Silanes: Useful Chiral Auxiliaries

This research aims to expand the utility of silanes in synthetic transformations by explaining their use as chiral auxiliaries in a variety of reactions. The silyl functionality is a versatile one. Not only is it simple to attach to a number of reactive centers but it is quite stable to a variety of reagents and reaction conditions. The direction of this research can go several directions. The PI wishes to investigate three of these during the planning period to determine the direction this research program will go and the nature of a MRI competitive proposal. The three areas are: 1) In depth study of conformational effects in both chelate and cyclic models. 2) Synthesis of optically active silanes. 3) Application of silyl auxiliaries in organic reactions.